Equipment Request to Support Process-Oriented Studies of theFormation of the Sedimentary Record

This award supports the acquisition of equipment for analysis of sedimentary record forming processes in a number of different environments. This award will forward process-oriented research in Arctic fjords, high latitude marine shelf sedimentary systems, marine outer shelf and slope environments, and geochemical processes governing carbonate mineral precipitation. The equipment requested includes: an alpha spectroscopy system, a carbon- nitrogen analyser system, and a spectrophotometer. The requested equipment will complement the analytical base at Northern Illinois University which is well developed for research and teaching in the geological record of environmental change, and in the processes governing the formation of the geological record in Arctic and Antarctic environments.